Kinetics and Mechanisms of Adsorbate - Adsorbate Reactions of Halocarbons and Coadsorbates on Iron Surfaces Studied In Situ

The study of the mechanisms and kinetics of the dechlorination of small organochlorine compounds forms the focus of this research project supported in the Analytical and Surface Chemistry Program. Dechlorination of chlorocarbons and polychlorinated biphenyls on model iron and iron oxide surfaces will be examined using unique instrumentation for desorbing and identifying reaction intermediates. The combination of Fourier-transform reflection absorption infrared spectroscopy with laser desorption Fourier-transform mass spectrometry will provide information about the mechanisms and kinetics of these important surface reactions which can not be otherwise obtained. This information may have a significant impact on the development of environmental remediation processes for chlorine containing hydrocarbons. The elimination of halogen containing hydrocarbons from soils and groundwaters is an important environmental task. The research supported in this project by the Analytical and Surface Chemistry program uses a unique combination of techniques which can identify and quantify reaction intermediates on surfaces and in the gas phase, to help in the development of our understanding of dehalogenation chemistry on solid surfaces. This understanding will enable the design of more effective environmental remediation approaches for these widely dispersed contaminants.